Positional Games and Random Structures--A mathematical paradox

Every ``theory'' of games concentrates on one particular
aspect of games, and ignores the rest.
Traditional Game Theory (J. von Neumann, J. Nash, etc.)
focuses on the lack of complete information
(e.g., card games like Poker).
Games of complete information, like Chess, Go, Checkers, and
Tic-Tac-Toe, are ignored by the traditional theory.
Here the investigator develops a new branch of game theory.
He focuses on ``Tic-Tac-Toe like games'' (officially called Positional Games),
a large and imortant class of games of ``complete information'',
and develops a ``fake probability theory''.
In fact, the investigator continues his on-going research
started in the prior proposals.
The basic challenge of games of ``complete information''
is to handle the ``combinatorial chaos''.
To analyze a position (say in Chess, or in multi-dimensional
Tic-Tac-Toe), one has
to examine all of its options, and all the
options of these options, and all the options of the options of these
options, and so on. The
exhaustive search through the ``game-tree''
takes enormous amount of time.
One way to make up for the lack of time
is to study the random walk on the game-tree,
that is, to study the randomized game where
both players play randomly.
The most surprising part of the proposal
is how the probabilistic analysis of the randomized game is converted,
via potential arguments, into an explicit (deterministic) optimal strategy.
The investigator calls it a ``mathematical paradox'' for good reason.
Game Theory is about perfect players, and it is very
surprising that a play between random generators
(``dumb players'') has anything to do with a play between perfect
players! In contrast to ``Poker and randomness'', which is a natural
combination (see e.g. the role of ``bluffing''), ``Tic-Tac-Toe and
randomness''sounds like a very strange mismatch. The justification of this
mismatch requires a long technical explanation.
The theoretical significance of the proposal is that
it brings the remote subjects of Probability
Theory, Combinatorics, and Game Theory close to each other
in a novel, unexpected way.